Mentoring a Diverse Pipeline of Students to Achieve the Next Level of Academic Success

A mix of financially needy community college transfer students and beginning graduate students including those in the Northeast Alliance for Graduate Education and the Professoriate majoring in Computer Science, Computer Systems and Chemical, Civil, Electrical, Industrial and Mechanical Engineering are receiving annual scholarships of $8,000. A total of twenty two students, approximately eighteen of whom are undergraduates receive support for two years while three or four graduate students receive one year support with the possibility of a second year. In many cases, the graduate students are those who need some additional studies beyond those taken as an undergraduate to qualify for full acceptance into a graduate program. The project builds on previous CSEMS and S-STEM awards.